Multiscale multilevel iterative substructuring

The PI will develop novel algorithms that can be used for the simulation of flow through porous media in real-world reservoir models. The simulation of flow in porous media finds applications in a number of areas, such as water management, oil and gas recovery, carbon dioxide (CO2) sequestration, and nuclear waste disposal, to name a few. The underlying mathematical models and efficient numerical simulation is challenging due to several aspects. The reservoirs are typically very large, so the discretized mathematical model leads to systems of equations with hundreds of millions of unknowns, they have irregular structure, which complicates the model geometry, and they consist of materials that significantly differ in geological properties, which translates in the model to jumps in coefficients over several orders of magnitude. Moreover, the geological formations quite often also contain fractures that alter the effective permeabilities, and therefore need to be be accurately incorporated into the numerical model. For example, the flow of water in granite rock, which represents one of the suitable sites for nuclear waste deposit, is conducted by the complex system of vugs, cavities and fractures with various topology and sizes. Alternatively, the fractures might result from the engineering activities, for example hydraulic fracturing (also known as fracking) used for the extraction of natural gas.

The PI will develop novel algorithms for solving saddle-point linear systems combining numerical upscaling techniques with parallel, domain decomposition iterative solvers. There are many aspects of multiscale and domain decomposition methods that are quite well understood, but the major drawback of current methodologies is that they do not take full advantage of their potential by using the multiscale phenomena in the design of the solvers, which results in their inefficiency. Multiscale methods also frequently consist in fact only of two scales, whereas in a porous medium there are typically many scales. At the same time, advances in multicore architectures, networking, high end computers, and large data stores, are ushering in a new era of high performance parallel and distributed simulations. Naturally, with these new capabilities come new challenges in computing and system modeling. The goal of this project is to open new avenues to tackle these issues. In particular, the PI will develop multiscale methods that allows for a multiple of scales, and uses the upscaling algorithm to build a multilevel preconditioner for the iterative solver. The components of the method are thus recycled, which significantly decreases the computational cost. Moreover, this approach can be applied recursively and thus naturally offers a multilevel multiscale potential, unlike many traditional multiscale approaches that consist in fact of only two scales. It is expected that understanding of the issues related to design of multiscale and multilevel methods for extremely large problems will ultimately contribute to development of the next generation of parallel iterative solvers suitable for implementation on future exascale supercomputers.